ITWF: Factors Concerning Recruitment and Retention of Women Graduate Students in Computer Science and Engineering

EIA-0203127
Cuny, Janice E.
Aspray, William
Cohoon, Joanne
Jesse, Jolene
Computing Research Association

Title: Factors Concerning Recruitment and Retention of Women Graduate
Students in Computer Science and Engineering

This ITWF award provides support to the Computing Research Association
(CRA) to study an important aspect of the largest under-represented group
in the IT workforce, the graduate education of women. Using experience
gained in a previous Best Practice Report (Janice Cuny and William Aspray,
"Recruitment and Retention of Women Graduate Students in Computer Science
and Engineering", Computing Research Association, Washington, DC 2001) on
recruiting and retaining women in computer science and engineering (CS&E)
graduate school, the project will study U.S. CS&E graduate programs in
order to identify and quantify links between the program's recruitment and
retention practices and their outcomes.

Results expected from the study include a description and assessment of the
existing recruitment and retention practices in 50 CS&E departments with
doctoral programs; a measure of the impact recruitment practices have on
the female proportion of new students enrolled; a measure of the impact
retention practices have on the female proportion of students retained
through the doctorate; a set of materials that departments can use to make
self-assessments; an evaluation of the effectiveness and comprehensiveness
of the practices recommended in the Best Practices Report; and findings
that can be generalized on the link between recruitment and retention
practices and their outcomes with respect to female graduate students.